Acquisition of Biochemical Equipment

Biochemical instrumentation will be acquired for use in research projects in a broad range of basic biological disciplines, including developmental biology, microbiology, protein chemistry, cell biology, biochemistry, cell physiology, molecular biology, and biotechnology. The equipment, which includes microchemical instrumentation for DNA, RNA, and protein chemistry, and ultracentrifuges and related equipment for basic biochemical manipulations, will be part of a shared facility. Access to modern equipment is critical for progress in contemporary biology and in biotechnology-related research.